Mathematical Sciences Computing Research Environments

The Department of Statistics at Yale University will purchase workstations and peripherals that will be dedicated to support research in the mathematical sciences. The research to be supported lies in: 1. Product partition models for evaluating and selecting classifications; 2. Theory of empirical processes, with applications to econometrics and semiparametric models 3. Mixture models, the development of graphical diagnostics and formal tests for identifying the presence of mixing in generalized linear models, and for determining the numbers of components of finite mixtures; 4. Probabilistic models for molecular evolution, including alternatives to the traditional branching tree.